Acquisition of a High-Resolution High-Mass Mass Spectrometer Complete with MS/MS Capabilities

This proposal requests funds for the purchase of a high- resolution high-mass spectrometer complete with MS/MS. The instrument will be located in the mass spectrometer center, an analytical and bioanalytical resource that provides state-of-the- art capability in mass spectrometry. Specifically, the instrument will provide: exact mass measurements to provide elemental composition for unknown organic compounds, high- mass- range scanning at low resolution for use with newly developed soft ionization methods, and linked scans for the analysis of metastable, daughter, and granddaughter ions and neutral transitions as an aid to structure elucidation using MS/MS. The users are involved in research on allelochemicals and humic substances from soil, synthetic and mechanistic organic chemistry, composition of fossil fuels and naphthenic acids, proton affinity, biosynthesis of phytoalexins, oligo- and polysaccharide recognition process, protein identification and gene cloning, structures of polymer networks, metabolism and identification of retinoids, hydroprocessing of liquid fuels, elucidating fungal toxins, and electron transport chain and ubiquinones. The instrument will also be used by the surrounding community of mass spectrometrists.